Price Guarantees as Signals to Competitors to Increase PriceCoordination

This research considers whether price guarantees can be used as market signals to coordinate prices and maintain monopoly level prices in the market. The researchers have developed a data set on grocery prices of five stores, one of which undertook to match the prices of another store, and initial results indicate that price matching guarantees might lead to a higher degree of collusion. The possible collusive effect of price guarantees is an important research question and could have major implications for anti trust policy and the structure of competition in packaged consumer goods industry.